Facilitation of Arctic Science

This award supports a three-year Cooperative Agreement between the Barrow Arctic Science Consortium (BASC) and the National Science Foundation (NSF) that allows BASC to provide a variety of support services to the NSF's Office of Polar Programs. These are:

1. Provide logistical support and coordination to NSF funded science projects working in the Barrow area.
2. Management of the Barrow Environmental Observatory, a 7,644 acre section of land just to the north-east of Barrow reserved for scientific studies. BASC will also continue to recapture unpublished data associated with BEO and other North Slope and northern research.
3. Outreach and Education - providing strong links between the science community and the local community of the North Slope.
4. Work towards implementation of the recommendations of the report The Future of an Arctic Resource: Recommendations from the Barrow Area Research Support Workshop (ARCUS 1999) to the degree that NSF accepts them.
5. developing a mechanism to provide improved logistical and permitting support for U.S. scientists working in Chukotka (Russia).

The agreement expires on 29 August, 2000